Snow Depth, Soil Frost and Nutrient Loss in a North Temperate Forest

9652678 Groffman Recent research has revealed that snow-covered soils often do not freeze, while snow-free soils freeze and thaw many times over the course of the winter. This insulating effect of snow protects plant roots from freezing damage, and allows soil biological activity, including the cycling of key nutrients such as nitrogen, to occur during the winter. Research in this project will further understanding of the importance of snow as a regulator of soil processes and will assess a possibly important effect of global climate change. The researchers will experimentally reduce snow cover on forest plots to simulate an early winter "snow drought" as may occur with global warming. It is hypothesized that snow reduction will result in increased soil freezing, root death and nutrient loss from forest plots. The work will be conducted at a site funded by the National Science Foundation for Long-Term Ecological Research (LTER), allowing the investigators to evaluate the importance of snow relative to other factors influencing the structure and function of forest ecosystems.